NSF Young Investigator Award: Modeling and Simulation of Advanced Microelectronics and Optoelectronic Circuits and Systems

Yang This research is on modeling and simulation of mixed analog/digital circuit designs. Topics include: 1. Hierarchical modeling and simulation of tightly coupled, mixed digital circuits; 2. Simulation of high-performance circuits with complex nonlinear and electromagnetic effects; 3. Modeling and simulation of optoelectronic integrated circuits, with the focus on automatic model generation; 4. Development of a technique for fast power waveform simulation based on analytic digital macromodeling, which makes the method well suited to simulating circuit netlists derived from layout extraction; 5. Fast simulation of interconnect problems using asymptotic waveform evaluation so as to obtain efficiency and accuracy in approximating nonlinear portions of the circuit. Algorithms for solving these problems, including methods for simulating designs with over 100,000 transistors, are being developed.